COLLABORATIVE RESEARCH: Structural and Geochronologic Analysis of the Ruby Terrane, Central Alaska Thermal and Tectonic Processes of Arc-Continent Collision and Exhumation

9406480 Roeske Northern and central Alaska consist primarily of large blocks of continental crust that are locally overlain by oceanic crustal fragments. Gross similarities between them has led to speculation that they are all fragments of North America's continental margin, however data to support or refute this hypothesis is particularly sparse int he Ruby terrane of central Alaska. This project will provide the necessary thermal and structural history of this area in order to reconstruct the subduction and exhumation events so that a firm comparisons to other continental blocks can be made. Results should lead to a rubust model of the Mesozoic paleogeography of the northern Cordillera and answer the question of what the relative significance of strike-slip, thrust and extensional tectonics were in the history of the Ruby terrane, and how it arrival at its current oblique angle to the regional trends in the northern Cordillera.